Modeling Acid and Mercury Deposition: An Introduction to Scientific Methods

9553506 Florey The University of Wisconsin - Superior will initiate a 5-week Young Scholars project for twenty students entering grades eleven and twelve in the summers of 1996 and 1997. The disciplinary foci of the program are mathematics, chemistry, and biology with emphasis on the deposition of acid rain and mercury in Wisconsin and Minnesota lakes. Students use exploratory data analysis and multiple linear regression to develop mathematical modelsof acid rain pH. Students are introduced to ethical issues and career possibilities, as well as developing a follow-up research project.